Mathematical Sciences: Global Differential Geometry and Singularities

9403887 MCCrory The group of researchers will be working on several projects in areas of geometric analysis, Hamiltonian systems and algebraic geometry. Many of the projects have potential applications to other branches of mathematics including number theory, Lie groups and certain topics in mathematical physics including the theory of solitons and its applications. ***